Applications of Algebraic Topology to Geometric Group Theory, Parametrized Fixed Point Theory and Dynamics

Proposal: DMS-9971219

PI: Ross Geoghegan

Abstract: Professor Geoghegan is working at the interface of topology, geometry
and group theory. In collaboration with Professor Robert Bieri
(Frankfurt, Germany) he is investigating new topological properties of
an arbitrary action by a group G on a "non-positively curved" space M.
They have introduced the idea of n-connectedness of the action over M
and have found that this is an open condition on the space of all such
actions. For actions with discrete orbits they have identified their
conditions as equivalent to well-known finiteness properties of
stabilizers of points in M thus proving that these are also open
properties. Previous work of many authors on a restricted case
suggests that this should be a promising line of investigation, bringing
topological methods into algebra in a new way. They have set their
sights on a test case, the Moebius action of SL(2, Z[1/m]) on the
hyperbolic plane (for a positive integer m). They conjecture that the
amount of connectvity is directly related to the number of prime
factors of m, and they propose to prove this among other things. In
collaboration with Professor Andrew Nicas (McMaster, Canada) Professor
Geoghegan will continue his study of parametrized fixed point theory
and its relationship to non-singular flows. They hope to elucidate the
geometrical meaning of some K-theoretic torsions which have been
defined for such flows. They have already achieved part of that
program but more remains to be done.

Mathematics involves various styles or forms of thought. Among these
are the geometrical (or visual) and the algebraic (or discrete). For
example, "discrete group theory" (the formal study of symmetries) has
traditionally been part of abstract algebra. But fruitful advances in
our understanding of symmetries have been made in recent years through
geometrizing this kind of algebra. One way of doing this is through
the notion of "fundamental group of a topological space". If the
topological space is chosen wisely, much about the algebra of the group
which was previously invisible and unknown becomes clear through
applying the very old and deep field of "algebraic topology" to the
group being studied, via this space. The study of symmetries is basic
in many applications of mathematics, particularly to physics. This
approach is being used in the present proposal to better understand the
interplay of group theory with geometry and number theory (in the part
with Bieri) and with flows in dynamics (in the part with Nicas).